Lifetime Fluorescent Microscope

9361799 Dixon Analytical techniques, based on fluorescent lifetime measurements are currently being developed for applications in clinical chemistry and biological research. By measuring the phase of the fluorescent emission from a sample relative to that of an RF-modulated excitation source, it is possible to accurately determine the fluorescent decay rate. Although sensitive phase fluorometers have been constructed in a number of research laboratories, they require the use of large, expensive laser sources to excite the fluorescent sample. The commercial introduction of a phase fluorometer requires the development of compact, efficient laser sources with the correct combination of output power, wavelength and modulation bandwidth. Diode-pumped, intracavity sum frequency lasers can be modulated at rates up to 1 GHz and are capable of producing output powers in the blue and green that are greater than 25 mW. In this Phase I SBIR program we will investigate the feasibility of using a sum frequency laser to excite the sample in a phase fluormeter. A 490 nm sum frequency laser will be built and its modulation bandwidth and output power determined. The source will then be imaged into a commercial fluorescence microscope and the modulation depth of the fluorescent output determined as a function of input frequency. ***